QMHP - Numerical Optimization of Molecular and Nano-Scale Structures for Nonlinear-Optical Applications

The objective of this research is to use general numerical simulation and quantum-mechanical
modeling to guide the development of new paradigms for making materials with an ever-larger nonlinearoptical
response that can apply to a broad range of technologies. The approach is to study how to
optimize the response of individual molecules, determine how to combine molecules into particles to
achieve optimized synergism, study arrangements of particles that yield a bulk material with enhanced
properties, and generate ideas for optimizing material structures to make them most suitable for specific
applications.
Intellectual Merit: This research focuses on building a fundamental understanding of how to control
light’s interaction with matter with the goal of defining guidelines for making improved materials for a
broad range of applications. In addition to contributing to the fundamental Physics of nonlinear optics,
the results will guide chemists in processing and synthesizing new materials; will provide novel
paradigms for physicists/materials scientists for making complex structures; and will give engineers a
broad pallet of systems that impact many applications.
Broader Impact: This work will train undergraduate and graduate students to be the next generation
of interdisciplinary researchers at the cutting edge of science and technology that could, by the breadth of
potential applications, have a large positive impact on the economy. The theoretical techniques are
general, and are appropriate to any applications that are based on light-matter interaction. Potential spinoff
applications include medical imaging/diagnostics, novel cancer therapies, three-dimensional
photolithography, high-density memories, ultra-fast internet switches, and new computer architectures.